2019 Clinic on Dynamical Approaches to Infectious Diseases Data

This award will fund travel by six students to the Clinic on Dynamical Approaches to Infectious Disease Data being held in Stellenbosch, South Africa. The Clinic is designed for participants without substantial experience in scientific computing or in mathematical modeling. Training focuses on how the complex dynamics of pathogen transmission influence study design and data collection for addressing applied problems in infectious disease research. The workshop focuses on training in both mathematical epidemiology and biomedical epidemiology. Each tradition contributes its own distinct set of research methodologies. The training focuses on using models to ask research questions that are fully grounded in the participants’ previous experiences. Participants will learn how to identify which research questions can and cannot benefit from development of a dynamical modeling program. By providing training in both mathematical epidemiology and biomedical epidemiology, the students will be well poised for future research in these areas.